UNF Connection to SURAnet

The University of North Florida will connect their campus network to SURAnet (Southeastern Universities Research Association network, a regional network which is part of the NSFNET). Direct connection to SURAnet will provide researchers with improved access to national networks such as CSNET/Bitnet and USENET. Improvement is sought in reliability, speed, turn- around, flexibility, and functions such as file transfer, remote login, and teleconferencing. The University of North Florida will join the Florida State University System's FIRN InterLAN project by linking to SURAnet. This project provides sharing of resources among the nine state institutions. This link will greatly facilitate research by students and faculty, and will provide a valuable resource to supplement course work.